Increasing Capacity with Spatial-Division Multiple-Access in Wireless Communication Networks

The basic idea behind the proposed research is to establish multiple spatial channels at the same "frequency" - Spatial-Division Multiple Access - using parameter estimation techniques from array processing. Phase I efforts will include the development of accurate software models of the electromagnetic environment, extensive simulation studies using the ESPRIT algorithm and other parameter estimation algorithms, and the development of signal detection, estimation, and demodulation techniques which can be used to accomplish the channel assignment. These efforts will culminate in the specification of an experimental system which will be used to test the proposed techniques in a realistic environment.